Labor Unrest and Capital Mobility in Global Industries: A Comparitve Analysis of Auto, Mining and Textiles

This is an award under the Research Planning Grant program for women scientists and engineers. The researcher will study the relationship between labor unrest and industrial restructuring in the automobile, textile, and mining industries in the twentieth century. She will extend her previous work on this topic to a broader range of industries, construct a world-wide data base, and formulate additional hypotheses as preparation for a subsequent, larger project that will attempt to test a variety of hypotheses about the forces behind industrial restructuring and relocation. This award will initiate research which should shed important light on the forces that are transforming manufacturing and employment in the modern world. As such this project has potential policy importance in that it may help us understand under what conditions companies do or do not decide to relocate or restructure. In addition to the scientific gains and social importance of this research, this award will materially assist a young researcher to prepare for a larger project, thereby contributing to the strengthening of the national base of women scientists and engineers.